A vBNS Connection for the University of Pittsburgh

This award is made under the high performance connections portion of
ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides
partial support for two years for an OC-3 connection to the vBNS.
Applications include projects in content based image retrieval, computer
aided design and simulation, crystallography, high energy physics,
computational fluid dynamics, statistical modeling of adsorption and
networking research. Collaborating institutions include the University of
California at San Diego, National Center for Supercomputing Applications,
CEBAF, the Supercomputer Computations Research Institute at Florida State
University, the National Energy researhc Supercomputer Center at Lawrence
Berkeley Laboratory and Pennsylvania State University.